Structure/Function Relationships in Tropomyosin

Tropomyosin is a protein which plays a critical role in regulating muscle contraction. Like all proteins, tropomyosin is composed of a linear sequence of amino acid sub-units. Although we know that the function of a protein depends on the chemical properties of its amino acids, very little is known about how the specific amino acids in tropomyosin help to regulate muscle contraction. The long-term goal of this research program is a more detailed understanding of the relationship between the amino acid composition of tropomyosin and the role of the protein in muscle cells. Animals have several kinds of muscle, with unique properties. What imparts this uniqueness? The intriguing observation has been made that different muscles contain different versions of the contractile proteins, where each version, known as an isoform, has a unique amino acid sequence. Tropomyosin is one of the contractile proteins with a muscle-specific distribution of isoforms. The short-term objective of this project is to determine whether different tropomyosin isoforms endow muscles with distinctive contractile properties. We are focusing on an isoform of tropomyosin found in the indirect flight muscle of the fruit fly, Drosophila melanogaster. Indirect flight muscle has special properties that allow it to move the wings rapidly during flight. The project will employ a mutant strain of Drosophila that is unable to fly because it does not produce enough of the flight muscle tropomyosin isoform. To determine whether the flight muscle isoform is essential for flight muscle function, flight muscle of the mutant strain will be supplemented with two non-flight muscle tropomyosins. Muscle structure and function will be analyzed. If tropomyosin isoforms are functionally interchangeable, the mutants will regain the ability to fly; if the flight muscle isoforms provides unique and essential contractile properties, the flies will remain flightless. Should we obtain the latter results, those segments of the flight muscle protein critical for flight muscle function will be identified. Before we can understand completely how the muscle cell works at the molecular level, the part played by each of the component proteins must be elucidated in as much detail as possible. The present study will expand our knowledge of tropomyosin's role.